Regional Strain Accommodation and Fault Kinematics of the Norumbega-Nonesuch River Strike-Slip Fault System: Dextral Transpression in the Northern Appalachians

This project deals with the complex structural geology of the coastal belt of Maine from New Hampshire to New Brunswick, the development of a major regional strike-slip fault system and its relationship to possible oblique convergence during the Mid-late Paleozoic. It focuses on an area containing two large faults (Norumbega and Nonesuch River faults) and a complex zone linking them. The work involves detailed structural analysis of these faults and transition areas and will attempt to determine strain amounts and kinematic mechanisms for fault interaction. Results are important to the regional tectonic story, including the arrival of exotic terranes, but also is of interest from a microstructural process-related perspective.